Maricopa Advanced Technology Education Center

The Maricopa Advanced Technological Education Center (MATEC) has fostered the development of work-relevant, industry-endorsed, curricula and instructional modules for use in community college programs primarily in semiconductor manufacturing. The modules include the background science and mathematics needed. Over 100 modules in 19 clusters permit faculty to use the modules to customize their courses. The courses provide an integrated, accessible professional growth system that ensures currency and relevancy to local industry. The instructional delivery system uses virtual reality both in an observing mode and in an interactive mode to educate technicians in clean room practices and instruments. The Center has programs for high schools to encourage a more diverse population to seek employment in the semiconductor and supporting industries. The Center seeks to become a self-sustaining entity working with SEMATECH and the Semiconductor Industry Association for education and workforce development of the industry. Activities include memberships, development and distribution of curricula and instructional materials, promotion of faculty development opportunities, and participation in Internet-delivered web commerce. Certification of semiconductor manufacturing technicians is being investigated.